Physical Structures of Ionized Hydrogen (HII) Regions

Dr. Chu will study the physical structures and energetics of regions of ionized hydrogen (HII regions) which are under the influence of supernovae and winds from stars. The work will be a mixture of observations and theoretical interpretation. Dr. Chu will first study giant HII regions around associations of OB type stars in the Large Magellanic Cloud to investigate the interactions among stellar winds, supernovae, and the interstellar medium. Research on the interactions among young, hot stars, supernovae, and the interstellar medium can be important to understanding how stars modify their environments and affect the rate of star formation. One advantage of studying giant HII regions is that the large number of ionizing stars make it possible to see the relatively rare stellar wind phenomenon and to investigate its effects on the interstellar medium. Rapidly expanding shells of gas have been detected in at least one giant HII region, and some of the shells must be young, wind-blown bubbles. These young bubbles and the emission of X-rays, which implies the presence of supernova remnants, near a high concentration of O type stars pose many intriguing problems for theorists on the interrelationships of these phenomena.